Integrating Climate, Hydrologic and Decision-Support Models for Regional Assessments

ABSTRACT ATM -9712057 Dirmeyer, Paul A. Institute of Global Environment & Society, Inc. TITLE: Integrating Climate, Hydrologic, and Decision Support Models for Regional Assessment. The idea of the proposal is to develop an integrated assessment capability based on component models. For this it is proposed to improve current climate, hydrologic and assessment models and to develop effective mechanisms for coupling these models in order to produce increasingly detailed projections of regional climate changes in climate and hydrological conditions which in turn are used to provide more realistic assessment of the consequences of resulting changes in water availability for key sectors. This system will be tested over the Ganges-Brahmaputra valley. This research fits into the goals of MMIA very well and if successful will help mitigating the detrimental effects of climate change.